RUI: Studies of Solar Neutrinos and Nucleon Decay at Super-Kamiokande

9514150 Ganezer In this RUI proposal Professor Ganezer requests support for the study of solar neutrinos at an experiment known as Super-Kamiokande. This project will provide a unique opportunity for an ethnically diverse group of students to participate in a state-of-the-art experiment that is of major interest in Physics and Astronomy. ***